Technician Support: USC Electron Microprobe Lab

This award provides partial support for a full-time research technician who will operate the electron microprobe system in the Department of Geological Sciences at the University of south Carolina. The University is committed to providing the remaining funds required. The electron microprobe instrument provides quantitative chemical analysis of small inhomogeneous rock and mineral samples needed for the research and teaching programs of members of the Department of Geological Sciences.